Workshop on Algorithms, Combinatorics and Geometry

ALGORITHMS, COMBINATORICS AND GEOMETRY

Knowledge of mathematics and combinatorics is crucial to the design of combinatorial algo-
rithms. Conversely, questions or concepts arising in the applications sometimes give rise to
interesting mathematical problems, or can be used to solve mathematical problems. Hence,
any type of interaction between the discrete mathematics and the computer science commu-
nities is beneficial to both groups and must be encouraged.

The University of North Texas in Denton will host a workshop focusing on algorithms, com-
binatorics and geometry. The workshop would focus on the mathematical and algorithmic
problems arising from combinatorial and geometric structures.

It is anticipated that the talks would introduce a broad range of fundamental and recent re-
sults which would be of interest to the advanced and beginning researchers in combinatorics,
combinatorial and computational geometry, computational biology, geometric graph theory,
topology, theoretical computer science and graph drawing. It is further anticipated that the
workshop would bring together advanced researchers, as well as graduate students in many
areas of discrete mathematics and computer science and engineering, and hence foster and
facilitate collaboration and joint research among different communities. To disseminate the
knowledge presented at the workshop and to assess its impact, a special issue of a journal
will be selected for possible publication of a collection of the papers that relate to the main
theme of the workshop.